Connection to Texas Higher Education Network (THENet)

9318993 Essa This project connects Austin College to NSFNET through THEnet over a 56kbps line. Faculty and students will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years.